DDDAS-SMRP: Integrated Wireless Phone Based Emergency Response System (WIPER)

The proposed project will develop an integrated Wireless Phone Based Emergency Response System (WIPER) that is capable of real-time monitoring of normal social and geographical communication and activity patterns of millions of wireless phone users, recognizing unusual human agglomerations, potential emergencies and traffic jams. WIPER will select from these massive data streams high-resolution information in the physical vicinity of a communication or traffic anomaly, and dynamically inject it into an agent-based simulation system to classify and predict the unfolding of the emergency in real time. The agent-based simulation system will dynamically steer local data collection in the vicinity of the anomaly. Multiple distributed data collection, monitoring, analysis, simulation and decision support modules will be integrated using a Service Oriented Architecture (SOA) to generate traffic forecasts and emergency alerts for engineering, public safety and emergency response personnel.